Nuclear Reaction Mechanisms, International Conference in Calcutta, India, and Indo-U.S. Workshop, Bangalore, India, January 3-13, 1989, Award in U.S. and Indian Currencies

Description: This project supports attendance of 12 U.S. scientists at the International Conference on Nuclear Reaction Mechanism to be held in Calcutta, India at the Saha Institute of Nuclear Physics on January 3-9, 1989, and to participate in a U.S.-Indo Workshop to identify future research areas in the field. The principal organizer of the Conference is Dr. Suprokash Mukherjee of the Saha Institute of Nuclear Physics. The principal investigator organizing travel on the U.S. side is Dr. Harry Holmgren of the Department of Physics and Astronomy, University of Maryland. All the U.S. participants have been invited to present talks on recent developments in their specialties. The international nature of the Conference is clear in that the advisory committee has representatives from 16 nations. The timing of the Conference is also particularly appropriate as the field of nuclear reactions has generated large amounts of experimental results from new heavy ion facilities. The Conference will allow for the sharing of these results and discussion of the direction research should follow. Scope: The project continues the long tradition of collaboration between U.S. and Indian scientists in the field of nuclear physics. The outcome of the workshop is expected to enhance scientific collaboration between the two countries in this basic science area.